PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Miriam Kuzbary is " Characterizing algebraic structures in low-dimensional topology through relationships between classical, group theoretic invariants and modern, gauge theoretic invariant". The host institution for the fellowship is Georgia Institute of Technology, and the sponsoring scientist is Jennifer Hom.